Research Experience for Undergraduates Site

The University of Minnesota Department of Chemical Engineering and Materials Science has run a successful and thriving undergraduate research program for more than thirty years, and because of increasing recognition of the need to encourage African American, American Indian, and Chicano/Latino students to pursue graduate studies, this program will fund ten such students. These ten students will be selected both from the U of MN and in a national search developed and implemented by the U of MN Institute of Technology Minority Affairs Director. The program affords the students the opportunity to perform guided research in one of the top research departments.